Soundprint Science Series

SOUNDPRINT, the weekly half-hour nationally broadcast public radio documentary series, proposes a 16-program SOUNDPRINT SCIENCE SERIES comprising four thematic components of four programs each, which explore and examine current issues and ideas in the areas of 1) Biodiversity and Species Management; 2) Invasions: The Predator and the Prey; 3) Cultural Geography; and 4) The Meanings of Science. The series offers listeners a variety of experiences illustrative of the breadth of what is defined as science. Scientific thought and method are presented through a humanistic storytelling approach that capitalizes on the imaginative quality of sound to immerse listeners in the exploration of phenomena. Each documentary explores a single subject, placing it in a meaningful context, and taking listeners beyond the surface of simple fact reporting. Programs translate complex scientific ideas into accessible, memorable stories that increase awareness and understanding of science for a broad population (SOUNDPRINT REACHES OVER 250,000 LISTENERS EACH WEEK). The SOUNDPRINT SCIENCE SERIES will be broad cast as a series of quarterly, month-long specials, with promotional, education and community outreach materials provided to stations. Post- broadcast application of the programs includes development of teacher guide packets targeted to the middle school level and repacking of programs for educational purposes in multi-media and interactive settings. Cassette copies of programs are shared by listeners in professional, educational, and informal settings. Major scientific disciplines involved include: biology, environmental sciences, geography, life sciences, mathematics and physics. The Proposed SOUNDPRINT SCIENCES SERIES is submitted to the National Science Foundation Informal Science Education Program. Programs in the series are geared to a broad, general audience, elementary through adult populations.